PostDoctoral Research Fellowship

Dr. Dutton will travel to Juneau, Alaska for five days. The purpose of the trip is to meet with potential collaborators and fellowship sponsors, view laboratory facilities and meet with the research group, and discuss ideas for a fellowship proposal for the Polar Programs Postdoctoral Fellowships deadline.